Pre-Middle Jurassic Accretion-Related Metamorphism in the Southern Klamath Mountains, Northern California: Phase II

Subduction-related, high pressure metamorphism is commonly overprinted by younger plutons during convergence and accretion of allochthonous terranes to craton margins. In the Klamath Mountains of California several accreted terranes contain evidence of low P/T metamorphism related to regional shortening and magmatic heating that occurred during Middle and Late Jurassic evolution of an a really widespread continent-margin magmatic arc at the western edge of North America. However, in the southern part of the Klamath Mountains, these terranes preserve the older, subduction- related high P metamorphism primarily due to an absence of later plutons. This research will investigate this metamorphism to help constrain the origin, evolution and tectonic environment of these terranes prior to their assembly in mid-Jurassic time. Results will advance understanding of the late Paleozoic to early Mesozoic paleogeography of the North American cordillera.